Comparing Expressive Values in Rural & Urban Industrial Development

Ethics and Values Studies joins with the Anthropology Program in supporting this project that examines value dimensions in the interactions of technology and society. It is commonly believed in the United States that the quality of life in rural and small towns is preferable to that found in large urban areas. The objective of this research is to compare the quality of life for individuals who work in small machine-tool companies located in rural, semi-rural, and urban areas of western Pennsylvania, and to ascertain what factors contribute to the degree of satisfaction that these individuals have with their lives. An in-depth ethnography of the small machine-tool companies in the region will be developed, including a survey of workers' satisfaction with their jobs, leisure, communities, and lives in general. Research methods will include traditonal anthropological field techniques, including observation, interviews, and the use of key informants, as well as the experience sampling method, local and regional surveys, and the use of written and physical stimulus materials in sorting and ranking tasks. Results will include presentations at professional society meetings, book chapters, and articles in a wide variety of journals. This research will further knowledge of quality of rural and urban life, technological development in rural and urban areas, the influence of automation on work and worker satisfaction, and the relationships among work, leisure, community, and life satisfaction of employees of these shops. The investigators are very well qualified; and the research design and methods of collection and analysis are very sophisticated. Results will be of interest to a broad audiences of policymakers as well as academics. Support is highly recommended.